Integrated Laboratory For Introductory Math, Physics, And Engineering

The project involves the implemention of an integrated or common laboratory to be used by engineering students in their introductory mathematics, physics, and engineering courses. The proposed laboratory is part of a novel curriculum revision experiment which is being funded separately as part of the NSF sponsored SUCCEED program. The planned curriculum revisions address critical issues in the restructuring of the undergraduate engineering curriculum and a new experimental model for undergraduate engineering education is developed. In particular, a new model for integrating mathematics, physics, and introductory engineering at the critical freshman year is being implemented. The project seeks to develop an early exposure to engineering and an emphasis on the common knowledge base from mathematics, physics, and the engineering method at the freshman year. Innovative features of the integrated teaching approach include: (1) a flexible hours per week distribution concept between mathematics, physics, and engineering, (2) implementation of "just-in-time" learning concepts between the three subject areas and, (3) a common computer- oriented laboratory for the three subject areas.